Geophysical Instrumentation for Undergraduate Training in Field Science on the Juneau Icefield, Alaska

The Foundation for Glacier and Environmental Research is acquiring state-of-the art seismic and ice radar equipment with integrated portable computers for undergraduates to coduct research work will be conducted on the Juneau Icefield, Alaska. Undergraduates are determining sidewall effects of ice radar and gathering more accurate ice depth data. Eighteen cross glacier profiles are being analyzed for ice volume interpretations. These and allied student projects are uncovering trends in meteorological and mass balance changes, and obtaining measurements of radiation energy controlling glacier ablation and affecting the runoff of supraglacial streams.